Collaborative Research: Fast High-Order Methods for Vesicle-Fluid and Membrane-Fluid Interaction and Adhesion

The investigators develop numerical algorithms for simulation of
incompressible deformable membranes interacting with Stokesian fluids,
other membranes and rigid walls. The goal of this work is to enable
high-accuracy fast simulations of systems consisting of large numbers
of interacting vesicles. Investigated numerical methods are based on
a boundary integral formulation which only uses fields defined on the
surface and therefore eliminates the need for discretization of 3D
space, which considerably simplifies simulation of deformable
boundaries. The dense linear systems of equations resulting from
discretization and linearization of the boundary integral formulation
are solved using extensions of kernel-independent fast multipole
algorithms previously developed by the investigators. The work
includes two main directions: discretization schemes for deformable
surfaces, based on constructive manifold structures on meshes and
localized spectral bases, and boundary integral and membrane-fluid
interaction linear and nonlinear solvers.

The investigators aim to create efficient computational tools for
solving problems arising in a variety of biological and biomedical
contexts. Potential applications include simulation of blood cell
behavior in blood flow, formation of membranes in a fluid and design
of targeted drug delivery mechanisms based on vesicles. Development
of efficient tools for such problems makes it possible to test
scenarios involving complex boundaries, large numbers of deforming
cells or vesicles.